SGER: Planning For Scientific Drilling on Lake Malawi, East African Rift

This award supports preliminary site investigations and logistics planning for an ambitious drilling project to recover a series of ~400 meter-long continuous sediment cores from Lake Malawi at the southern end of the East African Rift Valley.

Previous studies from the region show the area to be a unique outdoor laboratory and archive for the study of tropical paleoclimatology, tectonics, and evolutionary biology. Consequently, Lake Malawi holds the promise of providing a high-resolution paleoclimate record of unparalleled antiquity in a region highly sensitive to climate change and critical for understanding the dynamics of the Earth's climate system.